Computing and Algorithmic Mathematics for Secondary School Teachers

This national leadership project for superior level computer science/mathematics instruction of high school mathematics/science teachers combines two six-week intensive summer instruction in computers, Pascal and algorithmic mathematics with individualized guided home study operation and a two day meeting at mid-year during the intervening academic year. The participating teachers will run in- service workshops/seminars for their schools, upon completion of the program. The goals of the project are to assist high school teachers to: o be proficient in teaching the essence of computer science, namely the construction and testing of algorithms; o experience intensive supervised hands-on instruction; o become lead teachers and run workshops for their school districts; The first summer (1987) 60 teachers, half from California and half from a national applicant pool, from a varied demographic and ethnic backgrounds, will meet at the University of California, Santa Barbara. They will study: structured programming in Pascal; data structures in Pascal; and algorithmic mathematics. During the intervening academic year, there will be a nine month program of guided home study under the direction of project faculty and staff via a hot line telephone, mail-in assignments and a mid-year mini-conference at the UCSB microcomputer laboratory. The next summer (1988) the same 60 teachers will return to UCSB to study: computer systems; programming language organization and implementation; and topics in algorithmic mathematics. The teachers will also take seminars on how to develop computer workshops for colleagues in their school districts, and how to translate their course work into materials for class use. The project director is Marvin Marcus, professor of mathematics and computer science and a vice-chancellor at UCSB. Marcus is recognized internationally for his work in the mathematical sciences. The senior personnel will consist of Ralph Shively, professor and chairman of the department of mathematics and computer science at Lake Forest College, senior mathematical scientists, research learning expert, and evaluators from UCSB and Lake Forest. Cost sharing by UCSB consists of paying the administrative costs of the director of university extensions, and exclusive use of the micro- computer laboratory.